Fundamental Issues of Mathematical and Physical Theory of Plasticity and Damage Mechanics

The objective of this three-year U.S.-Yugoslav cooperative research project on solid mechanics between V. Lubarda of the University of Titograd and D. Krajcinovic of Arizona State University is to develop a theory coupling elasto-plastic deformation of crystalline solids and damage mechanics as it applies to plasticity of metals. The investigators combine their joint expertise, Lubarda in elastic plastic theory and Krajcinovic in damage theory. The research results will advance current knowledge of plasticity and its application to problems in engineering and materials science. Of particular interest is the possible application of this theory in metal forming processes. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution.